Extending the Scope of Geometrical Model Theory

Buechler's proposed research is to extend the scope of
geometrical stability theory outside of the context of a
first-order theory. His test project is an analysis of the
geometries induced by bounded linear operators on a Hilbert space
and more complex structures like von Neumann algebras. With his
student Berenstein Buechler has shown that many self-adjoint
operators induce dependence relations satisfying all of the
conditions of the dividing dependence relation. Buechler hopes
that the dividing dependence relation will give insight into the
structure of von Neumann algebras. In another project Buechler
will investigate "dividing relative to a closure operator". While
this study is analogous to the study of p-simple types in a
superstable theory it presents dramatically different results
when the original theory is not simple and the closure operator
is chosen creatively. Applications to metric spaces and Vaught's
conjecture are expected. Buechler will also study a class of
scale-free networks with model-theoretic methods. Scale-free
networks are ubiquitous in nature and technology. Random graph
theorists have discovered some of their properties, such as the
degree functions. However, techniques for building models are
limited. Model theorists have developed techniques for building
graphs that are random relative to some constraints. These
methods may lend themselves to building scale-free graphs with
specified parameters.

Frequently a significant advancement in science occurs when a
problem arising in one area is viewed from the perspective of
another discipline. For example, problems in genetics have
yielded to techniques from graph theory. In mathematics algebra
has lead to great insight into geometry and knot theory.
Buechler's specialty is model theory, a subfield of mathematical
logic. Recently, Hrushovski applied model theory to solve
problems in number theory. Buechler is adapting these same
model-theoretic methods with an eye to problems in analysis and
network theory. In analysis Buechler is looking at the
model-theoretic content of operator theory, which has connections
to mathematical physics. The networks Buechler will study are at
the heart of such disparate systems as the metabolic pathways in
a cell and the World Wide Web. Buechler will attempt to adapt
model-theoretic techniques for constructing graphs of interest in
pure mathematics to building models of these networks arising in
nature and technology. Graduate students will be involved in all
of these projects. The cross-disciplinary nature of the work will
require the students to learn science that their normal
curriculum would not expose them to, and to learn the value of
viewing research in a broader context.